Lysophospholipids and Synaptic Membrane Functions

Phospholipids are major components of biological membranes and undergo a continuous cycle of synthesis and degradation as part of normal membrane function. Within this cycle, lysophospholipids exist as metabolically active intermediates, the amounts of which are regulated by the catalytic activity of several enzymes. The potent effects of lysophospholipids on numerous biological processes and the accumulation of these compounds under pathological conditions suggest a requirement for stringent regulation of the concentration of lysophospholipids. The working hypothesis of this research project is that specific lysophospholipids are transiently released during stimulation of brain synaptosome, and that these compounds serve as modulators in regulating neurotransmitter release. Recent studies have provided evidence for such regulation and have implicated these compounds in intercellular communication mechanisms. Studies currently are underway on the characterization of some of the relevant enzymes in these metabolic pathways and on the factors responsible for controlling the metabolism of these compounds. The research will extend the studies to (a) determine the quantitative importance of different chemical reactions which generate and remove lysophospholipids in brain synaptosomes under resting (basal) conditions, (b) determine the physiological mechanisms of lysophospholipid production in brain synaptosomes under conditions of stimulation, and (c) purify and characterize some of the key enzymes (phospholipase A2, lysophosphatidylcholine acyltransferase, and lysophosphatidylinositol acyltransferase) controlling these processes. The overall goal of the project is to elucidate the biochemical pathways responsible for regulating the amounts of these important biomolecules. The studies are expected to lead to a better understanding of the molecular events occurring during neurotransmission.